Shipboard Scientific Support Equipment - 2011

ABSTRACT

10 August 2011
Proposal Number: 1118318
Institution: Woods Hole Oceanographic Institution
PI: A. Suchy

The proposal requests one Shipboard Scientific Support item for Woods Hole vessels; namely replacement portable overboarding blocks. These blocks will enhance safety and keep WHOI vessels in compliance with current wire and cable Safe Working Load standards (RVSS, Appendix A) as well as improve science support capabilities.

Broader Impacts: Woods Hole vessels support federally funded scientific research throughout the world’s oceans and routinely expose graduate and undergraduate students to seagoing oceanography. All told, the KNORR, ATLANTIS and OCEANUS are scheduled to complete over 580 NSF sponsored days in 2011.